Competitive and Strategic Equilibrium in Auction Environments

Faruk Gul and Ennio Stacchetti Northwestern University SBR-9510942 The proposal concerns markets with indivisible goods and consists of two projects. The first project concerns the existence and efficiency of Walrasian equilibrium in an economy with complete information. The P.I. shows that two properties of preferences, which they call substitutability and monotonicity are sufficient to ensure the existence o a Walrasian equilibrium. The propose to find additional properties of the these equilibria. The second project concerns the characterization of the interim efficient, incentive-compatible Bayesian mechanisms for the private-values incomplete information economy with the same set of preferences. The P.I. shows that the efficient mechanisms are essentially Vickery-Groves-Clarke (2nd price) auction mechanisms. The proposal is to extend the results to the case of private preferences with common values..